U.S.-Japan Joint Seminar: Robust Virtual Engineering

9726331 Doyle This award supports the participation of American scientists and engineers in a U.S.-Japan seminar on Robust Virtual Engineering, to be held in Pasadena, California, from October 5-10, l998. The co-organizers are Professors John Doyle of the California Institute of Technology and Hidenori Kimura of the University of Tokyo in Japan. The seminar will undertake a study of Robust Virtual Engineering. The objective is to focus on constructing a theoretical basis for virtual engineering and complex systems. The use of "virtual engineering" suggests both a broader and more focused concept than "modeling and simulation." It also makes explicit the role of analysis, insight, understanding, design, and decision-making. The seminar will focus on physics-based complex systems. Physicists typically do not develop their models so that they can be incorporated naturally as elements of a larger system. Engineers typically design systems using methods which are cautious and robust, but without relying on detailed physical descriptions of the components. The session will focus on encouraging the incorporation of more detailed physical descriptions at just the right time and in just the right place for a much more realistic picture of the ultimate limitations associated with the performance of the system. It is expected that the interactions between the engineers and physicists should assist in better planning for the future of virtual engineering and complex systems. The exchange of ideas and data with Japanese experts in this field will enable U.S. participants to advance their own work, and will set the stage for future collaborative projects. Seminar organizers have made a special effort to involve younger scientists. The proceedings of the meeting will be made available on the World Wide Web. ***